Biohydrogen Production from Organic Solid Wastes

0607175
Khandan
Hydrogen (H2) has been proposed as a renewable and pollution-free, high-efficiency energy carrier to replace nonrenewable fossil fuels. Currently available H2 production techniques are energy-intensive and expensive. This project is developing procedures to use cattle manure, natural microbial populations, and multi-stage reactors, coupled with a unique H2 separator, for a sustainable H2 production process. The goal of the project is to demonstrate that H2 can be produced from cattle manure at high rate and yield with minimum energy input in comparison to existing technologies. The results will be evaluated by performing a life-cycle analysis of the process. The effort combines technology development for a practical application with the generation of new knowledge on the underlying science. Educational and outreach aspects include contributions to courses, the development of a museum display, and development of a multi-media-based simulation model to present fundamental concepts fuel-cell technology and H2 economy to be used with stakeholders throughout their community.